A Scientific Planning Workshop for Coordinating Brain Research Around the Globe, Baltimore, Maryland, April 7-8, 2016

Understanding how behavior emerges from the dynamic patterns of electrical and chemical activity of brain circuits is universally recognized as a fundamental mystery in science. Furthermore, better knowledge of healthy brain function has broad societal implications by laying the groundwork for advancing treatments for neurological disorders and for developing brain-inspired technologies. Various brain research efforts around the globe have embraced this scientific grand challenge. This meeting brings together US and international brain researchers to discuss the need for coordinating brain research efforts around the globe, the bottlenecks and challenges that stand in the way and strategies to overcome these. A particular focus of the meeting is on cyberinfrastructure and data resources needed to further enhance collaboration and analysis of disparate streams of neuroscience data.

The Organizers are making a strong effort to invite women and members of underrepresented groups as participants. Further, the meeting entails extensive cross-disciplinary interactions, which will be aided greatly by the face-to-face nature of this meeting. To maximize the workshop's impact, a white paper summarizing the discussion will be published at a high-profile venue.